Coronary Flow Regulates Heart Properties

Adequate blood perfusion of the heart (coronary flow, CF) is essential for its performance and survival and until recently it has been believed that the sole purpose of CF is that of mass transfer; namely, to provide nutrients and remove waste from the myocardium. However, recent evidence from our laboratory indicates that besides the mass transfer function CF is also a stimulus for the cardiac utilization of glucose and oxygen (metabolic effects, ME) and a stimulus for the transmission of the electrical impulse from atria to ventricle (dromotropic effect, DE). In addition, associated with changes of CF there are changes in two forces that act on the blood vessel wall and consequently could act as stimulus. These forces are distention of the vessel wall (pressure) and frictional forces acting on the surface of the vessels (shearing). Our preliminary results have indicated that shearing is the important stimulus. Moreover, we reasoned that the mechanism by which shearing could have a ME and a DE may be via deformation of cellular structure(s) on the intravascular wall that are oriented perpendicularly to the direction of the force. Specifically, we are concerned with the sugar-containing protein (proteoglycans) chains that are embedded in the cell membrane blood vessels. To test this hypothesis we decided to "clip" selectively some of these proteoglycans with enzymes; that act as scissors removing specific protein chains. Our preliminary studies show that removal of specific proteoglycans containing the sugar heparin caused the stimulatory effects of shearing on ME and DE to be significantly reduced. Our proposed studies will establish that the deformation by shearing forces of specific endothelial proteoglycans will result in modified cardiac function possibly by the release of chemical messengers that cause a ME and DE in the adjacent cardiac cells. These studies will open new avenues in the understanding of cardiac function and metabolism.